Formation and Physical Properties of Substellar Objects

AST-0507833
Michael Liu
University of Hawaii
Formation and Physical Properties of Substellar Objects
ABSTRACT
The goal of the work is to explore the multiplicity of brown dwarfs, to determine the physical
properties of substellar binaries, and to find low-temperature/low-mass brown dwarf and planetary
companions. This is motivated by the need for better statistical properties of substellar populations
in order to understand their formation. The techniques to be used are high angular resolution
infrared imaging of large samples of brown dwarfs to reveal binary companions (and extract the
binary frequency, separation distribution, and mass ratio distribution of the population) and to
search for very low temperature (Y-class brown dwarf and planetary) companions, and imaging
plus near-IR spectroscopy to determine the physical properties of the binary members (particularly
dynamical masses and temperatures, which can in turn be used to test theoretical models). The
project will be carried out using the Keck Laser Guide Star Adaptive Optics system.
A postdoctoral fellow will be trained in laser guide star adaptive objects - a growing and potentially
very important tool within the astronomical community. The training of an undergraduate is also
included, who will participate through the NSF sponsored Research Experiences for
Undergraduates program at the Institute for Astronomy at Hawaii.